Computer Science Enhancement Grant for Students

The project provides financial assistance to eligible students in the Computer Science degree program at Nunez Community College and encourages high school students to enter the Computer Science program. A panel of instructors evaluates each student's potential for success to complete the degree and selects participants. Selected participants receive tuition and books paid for by the grant. Students meet with the Computer Science Advisor/Mentor during the semester to monitor progress. Students also participate in a series of specialized workshops to help them with logic skills, job-seeking skills, and transferring to a 4 year university. The Mentoring Model and the series of specialized workshops are used to enhance the scholarship students' success rates. The workshops and mentoring skills provided to students receiving scholarships prepare them for either a satisfying career or entry into a 4-year institution.